Summer School in Inverse Problems; June 2009; Newark, DE

Luke
DMS-0852454

For the Institute for Mathematics and its Applications (IMA)
and its Participating Institutions (PI), the principal
investigator and his colleagues organize the IMA/PI Summer School
on the Mathematics of Inverse Problems, June 15-July 3. In this
project the investigators include students who are not from the
participating institutions. The program is geared toward
graduate students in the mathematical sciences. The 2009 summer
program on the mathematics of inverse problems covers three
different themes: inverse problems for hyperbolic partial
differential equations, inverse scattering in the frequency
domain, and variational techniques for inverse problems. The
program covers the techniques used to tackle problems at the
cutting edge of mathematical research in each of these areas.
Week-long lectures and problem-solving sessions are presented in
an informal environment by world leaders in each of these areas
-- William Symes (inverse problems for waves), John Sylvester
(inverse scattering), and Jonathan Borwein (variational
analysis). Two of the three lecture series (inverse scattering
and variational techniques) are under contract to appear as
separate chapters in a book to be published by Springer in 2010.

Inverse problems are everywhere, from determining the causes
of global warming, to finding oil and natural gas under the
earth's surface, to diagnosing diseases with medical imaging.
The basic idea of an inverse problem is simple: given an
observation, determine the cause. Unfortunately, most inverse
problems are not easily solved: the model for the observation is
often incomplete or incorrect, and, even if the model is a
perfect match to the truth, it may be impossible to accurately
determine the cause from an observation (the curse of so-called
"ill-posedness"). The last 20 years has seen a dramatic shift in
the mathematics of inverse problems and the capabilities for
solving them, initiated largely by improvements in computing
power and the concurrent evolution of what is often called
"experimental mathematics." Never before have new theoretical
tools been able to be tested with such immediacy and practical
import. This IMA/PI Summer School on the Mathematics of Inverse
Problems aims at preparing future mathematicians for research in
this growing and increasingly vital field. The schools bring
students together with outstanding researchers in an intensive
setting that is intended to lead students from the more familiar
course-oriented problem solving skills to the frontiers of
mathematical research. Students gain experience not only in
attacking problems on advanced and research-grade topics, but
also in working collaboratively with people from different
backgrounds. The 2009 program has received 51 applications from
a diverse group of individuals, 29 from participating IMA
institutions and 22 from non-IMA institutions. This project
supports students from non-IMA affiliated institutions.